Research Experiences for Undergraduates - REU Site at the University of Rochester

9322203 Kampmeier University of Rochester Dr. Jack A. Kampmeier and other members of the Chemistry Department of the University of Rochester are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this site is the interaction with the NSF Science and Technology Center for Photoinduced Charge Transfer.